Engineering Foundation Conference: Composite Construction III

9522912 Easterling The conference provides the opportunity for researchers and practioners from around the world to meet and exchange information that is vital to this area of engieering practice in steel-concrete composite structures that continues to grow and develop. All phases of design, construction and research related to both new construction and to repair and strengthening of existing structures will be discussed at the conference.